Mathematical Sciences: Homogeneous Structures, Strongly Minimal Sets, Model Theoretic Algebra

Combinatorial techniques developed primarily by Alistair Lachlan of Simon Fraser University have proved to be effective in a number of classification projects involving homogeneous structures. The investigator intends to develop this set of techniques further in the search for new classes of structures which cannot be analyzed in this fashion. He will follow up progress by Ehud Hrushovski of M.I.T. by attempting to construct new strongly minimal sets with an algebraic flavor or to prove that they do not exist. Two other problems in model theoretic algebra are also on his agenda. Model theoretic algebra of this sort is a mixture of mathematical logic and the study of classical algebraic structures. It has a characteristic flavor of its own but can shed light on difficuties which have arisen in traditional approaches to the classification and analysis of such structures.